REU Site: Mountains and Minds: A Program in Chemical Biology

Chemical biology is the research focus of the NSF REU program that is jointly hosted by the Department of Chemistry and Biochemistry at Montana State University and by the Native American Research Laboratories (NARL) at the University of Montana. Students who participate in this REU program will perform frontier research at the interface of chemistry and biology. Projects are available in areas of research including proteomics, protein-protein interactions, protein-macromolecule interactions, protein-small molecule interactions, protein structure-function relationships, enzymology, and small molecule synthesis. Students will work either in the NARL or in labs at MSU, and joint group meetings and a mid-summer symposium will facilitate interactions between the two sites. Native American students and students from Montana's Tribal Colleges are especially encouraged to apply, as are students from small colleges within the upper Northwest region of the country. Additional information and electronic application materials are available at www.chemistry.montana.edu/reu/.